Special Projects: Group Travel to 7th IFIP World Conference on Computers and Education (WCCE'2001)

EIA 0105186
Turner, Albert J.
Parrish, Edward A.
Association for Computing Machinery

Special Projects: Group Travel to 7th IFIP World Conference on Computers and Education (WCCE2001)

This proposal requests support to bring US participants to a major international conference on the use of information and communication technologies in education and on the teaching of computer science. The travel program will be administered jointly by the Association for Computing Machinery in association with the IEEE Computer Society.